Mathematical Sciences: IVHS and Geometry of Irregular Surfaces of General Type

This reseach is concerned with investigating the geometry of the Infinitesimal Variation of Hodge structure (IVHS) for irregular surfaces of general type which is motivated by the Torelli type problems. The specific objective of the research is to give a cohomology data on a surface which is sufficient to reconstruct a surface itself. By stating precisely what such a cohomology data should be and relating it to the the usual IVHS, one can infer sufficient conditions for the generic Global Torelli Theorem for certain irregular surfaces of general type, one of the main motivations of the research. The "heart" of the research is a new method of relating IVHS to the geometry of a surface. The essence of the method is to interpret part of the data of IVHS as a set of equations defining the zero-locus of a holomorphic 1-form on a surface. This method itself is an important part of the research: it not only enables one to resolve the specific objectives described above, but also is an effective mechanism which ties together three important aspects of study of an algebraic surface: IVHS of a surface; vector bundles of rank 2 on a surface; and effective 0-cycles on a surface. This research is in the general area of complex algebraic geometry. It uses algebraic and analytic tools to obtain information on geometric objects. It is an extremely important branch of mathematics, and Reider shows potential to add significantly to knowledge in the field.